Workshop on Hyperbase Systems

The need for high quality, directed research on hyperbase systems (hypermedia database systems) has become very apparent to researchers in many fields. This workshop brings together approximately 25 participants from the areas of hypermedia, database, collaborative and information retrieval systems for an intensive two-day workshop, held in Washington, D.C. in October 1992. The workshop has two primary goals. The first goal is to bring synergy to the hyperbase system research area through understanding and building of research relationships in this diverse and multidisciplinary group. The second goal is to establish an agenda for research in this critical area of next- generation information systems. The result of the workshop is a report identifying: critical research issues facing hyperbase system researchers, current progress on the issues, potential methods of approach (including literature citations) and a general research agenda for the field. The results will be widely disseminated in the refereed and professional society literature and through the appropriate conferences.